Symposium: 2000 Santa Cruz Conference on Developmental Biology; July 21-26, 2000, Santa Cruz, California

0078912
Bargmann

Developmental biology demands the integration of cell biology,
genetics, molecular biology, and biochemistry. The exciting progress of
the past decade has depended upon bringing together people who work with a
variety of organisms, including yeast, worms, flies, and vertebrates to
learn about the molecules and principles held in common among these
seemingly diverse organisms. Despite all the excitement in the field,
there are relatively few meetings organized to emphasize the increasingly
obvious relationships among developmental events previously viewed as
distinct.

Our specific objectives are to assemble a group of scientists with broad
expertise in modern molecular analysis of development, have a series
of talks on up to date research, and have about 120 other attendees present
posters describing their research. The meeting will be held on the campus
of the University of California, Santa Cruz on July 21st to July 26th,
2000.

There are two major goals of the meeting. The first is to teach
each other. The planned program will be a superb course in advanced
developmental biology, and help those working with each particular organism
to keep abreast of exciting new developments in the study of other
organisms. This will important not just for established investigators, but
also for the many students and postdoctoral fellows who will attend the
meeting.